Driver's Ed. for Teachers Navigating the Information Superhighway

9550117 Eaton Driver's Ed, for Teachers Navigating the Information Superhighway Northeast Louisiana University This 36 month project directly trains 60 teachers to use the Internet, to integrate Internet resources with state mandated curricula, to translate technology into the daily activities of mathematics and science, and to train their colleagues. The teachers are drawn from the districts in the vicinity of the university with one or two from each of the fifteen districts for each year of the project. The intent is to produce a cadre of well-trained network-literate teachers who can stimulate interest and support activities using technology. The teachers who participate each year have 12 month graduate assistantships. Preceding their assistantships, they take "Internet Applications for Educators"via the Internet. While at the university, they take 9 credits each semester including directed studies and provide 20 hours of classroom support for their peers. Cost sharing is 229%. ***